A Conference on Undergraduate Mathematics Curricula and and Instrumentation

The Associated Colleges of the Midwest, in conjunction with the Great Lakes Colleges Association, will sponsor a regional conference for mathematicians involved in the undergraduate mathematics curriculum from non-PhD granting institutions in the upper Middle West, to be held on June 3 and 4, 1987. The conference will have two primary goals: (1) to provide a series of presentations analyzing the ways in which undergraduate mathematics courses can more fully integrate instrumentation; and (2) to inform participants who will develop laboratory-based mathematics courses about opportunities for assistance from the National Science Foundation's College Science Instrumentation Program. A paper on curricular changes integrating instrumentation into undergraduate mathematics courses will come out of the conference and will be distributed to participants and more widely around the country. The model of this regional meeting may be used by NSF for other regional meetings with similar goals.